Acquisition of an ATM Network

9512621 Ja Ja The project proposes to establish an ATM-based high speed communication network connecting six research laboratories to the UMIACS Parallel Processing Laboratory (PPL). The six laboratories reside in the Departments of Computer Science, Geography, and Physics, and the Institute of Physical Science and Technology. The proposed network will consist of seven ATM local area networks connected by multimode fiber to four additional switches managed by the campus Computer Science Center. High-speed off-campus connections will be established to SURAnet and the NSF-funded National Scalable Cluster Project (NSCP). The UMIACS PPL provides approximately 20 Gigaflops of computational power and 400 Gigabytes of online disk storage to these laboratories. The proposed network will serve as a research instrument for addressing critical issues in networking research, operation and management network computing using distributed shared memory, distributed multimedia databases, and scalable I/O. The network will substantially enhance a number of collaborative research activities including (1) the development and evaluation of transport layer services over ATM LAN's, (2) the development of methodologies and tools for creating wide-area DSM, (3) experimental high energy physics requiring statistics-intensive data analysis, (4) visualization in scientific computations for chaotic dynamics and computational mechanics, (5) the application of remotely sensed images in the analysis of the Earth's environmental systems, and (6) techniques for creating and manipulating multimedia databases and scalable parallel I/O. ***